Computational Chemistry and Biology Courses

This project is facilitating the development of major curriculum innovations in Computational Biology and Computational Chemistry for advanced undergraduates by providing training in the application of computational methods to experimental sciences. The purchase of computer workstations with advanced graphics capability enable the teaching of molecular dynamics and modeling, the addition of a fluorescence detector to an extant HPLC System allow expansion of the types of molecules that can be analyzed, and a computer-based digitizer and image processing system are used for the acquisition of DNA sequence data.